SGER: Compliant Actuation for Human-Machine Interaction

Robotics and Computer Vision Program
Division of Information and Intelligent Systems

Abstract

SGER Proposal 0341840
Compliant Actuation for Human-Machine Interaction
PI: Thomas Sugar
Arizona State University

With National Science Foundation support, Dr. T. Sugar will conduct one year of study in actively controlling compliance and designing and constructing actuators that physically interact with the user. The study of compliant actuation is an essential part of integrated systems that will aid users in locomotion and standing from a sitting position, and offers a rich framework for exploratory research. Novel designs for compliant actuators for powered orthotics and mobile assistants will be developed. These actuators will allow for safe compliant human-interactions. The research activities will lay the groundwork for the development of rehabilitation aids for the elderly.
New, selective-compliant actuators based on dynamically changing the equilibrium position of springs will lead to more functional human robotic interactions. The proposed research will overcome the outlined challenges that include the tradeoff between precision, bandwidth, and compliance, and the robust sensing of forces. From this research, the next generation of interfaces will be developed for users to interact with personal robotic assistants.